The Topology and Geometry of Physics Conference; Lubbock, TX,

The Topology and Geometry of Physics Conference will be held at Texas Tech University on October 23-25, 2008. The conference will showcase five established researchers and seven additional speakers. They will give talks related to quantization problems, quantum topology, the quantum Teichmueller space, noncommutative geometry, and applications of quantum physics to algebraic geometry.

The main idea of the conference is to demonstrate deep connections between mathematics and physics. The participants will be exposed to a wide range of methods and results from different fields of investigation. The conference will also give a number of early career researchers the opportunity to interact with senior mathematicians.